Dynamic Duopoly and Bounded Rationality

One of the characteristics of standard modelling in decision theory, game theory and economic theory has been the postulate that all the people in the models are completely rational; they have well-specified objectives, unlimited memories, and unlimited abilities to compute without using up time or other resources. In recent years discontent with this postulate has been growing within economics because of the cumulative weight of years of data from experiments consistently showing that even in very simple decision problems and games the theories do not predict the actions of subjects very well. This project explores alternatives to the standard optimization model. In these alternatives, each decision-making situation is a pattern recognition problem in which the individual decision maker decides which of a small set of decision making tools ("rules of thumb") or actions to use. The project addresses such questions as how did the individual's set of rules and method of assigning rules to decision making problems come to be and how do they evolve. More specifically, the project examines two broad classes of models. In the first class there are single decision-maker models in which the decision maker's choices influence the path of some stochastic process about which the decision maker has little information but which affects his well-being. The effect of certain crude rules of thumb on the long-term survival of an individual is explored in a variety of contexts. The second class builds on previous work by the investigator on bounded rationality models in which individuals use rules of thumb to conserve on decision-making costs and to overcome imperfect reasoning and computing abilities. A population of individuals interacts over time using crude rules of thumb in a variety of settings. Here the focus is on what profiles of rules can survive over time as poorer performing rules are weeded out. The models used in the latter part of the project are adapted from the literature on anonymous random matching games.